CRI: Planning for Heterogeneous Data Repository for Computing Research

Abstract
Program: NSF 04-588 CISE Computing Research Infrastructure
Proposal: CNS 0454355
PI: Sumeet Dua
Institution: Louisiana Tech University
Title: CRI: Planning for Heterogeneous Data Repository for Computing Research

Investigators at Louisiana Tech University will plan an infrastructure project for an infrastructure proposal to build a heterogeneous repository of biomedical related data. The anticipated project will incorporate data such as free-text notes, instrument readings, and confocal images. The data will support a computing science research program addressing problems in data integration, data mining, database modeling, query translation, query optimization, rule-based databases, object recognition, information relevance feedback, extraction and indexing, and content-based queries. Partners in the planning process in addition to Louisiana Tech University at Ruston, LA will include the University of Louisiana at Lafayette, LA, Grambling State University at Grambling, LA, the University of New Orleans at New Orleans, LA, Louisiana State University at Baton Rouge, LA, Louisiana State University Health Sciences Center
at New Orleans, and Children's Hospital at New Orleans, LA. Broader impacts of this project include participation of minority institutions and potential partnerships with additional higher education and industry groups.